REU Site: Training and workforce development for the next generation of marine ecosystem managers

This project will provide undergraduate students with hands-on research opportunities in a variety of scientific disciplines. Students from across the United States will be selected to participate in intensive research projects, working closely with faculty and researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.

This REU site focuses on marine ecosystems and provides a unique opportunity to engage in marine ecosystem management and conservation research for the southern Gulf of Maine. Through independent research projects and collaboration within a cohort of researchers, the students will develop skills in research development and design, field methodologies, data analysis, science communication and career development. These experiences will prepare students for the workforce and provide them with the tools to address current and future marine ecosystem challenges.